Time-Resolved Optical Waveguide Experiments with Conjugated Polymers: Direct Measurement of the Magnitude and Sign of Third Order Non-linear Optical Susceptibility

This research involves an experimental study of nonlinear optical waveguides made from conjugated polymers. A punp-probe technique capable of picosecond time resolution will be employed to measure the intensity-dependent refractive indices of conjugated polymers such as p-phenylenevinylene (PPV) and its derivatives, polythienylenevinylene, the poly (3-alkylthiophenes) etc. for which waveguide quality thin films can now be fabricated. The technique can determine both the magnitude and sign of the third order nonlinear susceptibility. Determination of the sign is important in sorting out the different mechanisms.